Hilltopper Mathematics and Computer Science Scholarships - HMCSS

The Hilltopper Mathematics and Computer Science Scholarship (HMCSS) project provides support to 20 students for a period of three years. The target audience will be current freshmen enrolled at St.
Edward's University and transfer students articulating from Community Colleges.
The HMCSS projectl builds on the existing College Assistance
Migrant Program (CAMP) which is designed to offer an educational opportunity to the sons
and daughters of migrant and seasonal farm workers.